Computer Simulation of Chemical Dynamics

The Theoretical and Computational Chemistry Program is supporting Professor William Hase of Wayne State University for the next three years. In this research project classical molecular dynamics simulations will be used to study the microscopic atomistic motion of individual molecules and of chemical reactive systems, with the goals of comparing with experiment and determining fundamental information about intramolecular dynamics, energy transfer, and chemical reaction dynamics and kinetics. Since statistical theories are widely used to interpret experiment, statistical calculations will be performed to compare with the molecular dynamics simulations. The specific problems chosen for study are: (1) the kinetics of CH3 and H atom association with diamond surfaces; (2) energy transfer dynamics in collision-induced dissociation (CID) and surface-induced dissociation (SID); (3) the dynamics of gas-phase nucleophilic substitution; and (4) direct ab initio and semiempirical dynamics. Classical molecular dynamics is expected to give accurate results for these research problems and, given their complexity, quantum dynamical calculations would be difficult. In direct dynamics, trajectories are integrated `on the fly` by interfacing electronic structure theory directly with the molecular dynamics simulations. This is a frontier approach for performing simulations, which is directly linked to the computational power of modern computers. Direct semiempirical dynamics may be used to study large systems for long times (e.g. CID and SID), while ab initio direct dynamics may be applied to small systems for short times. An example of the latter is the exit-channel and energy partitioning dynamics of trajectories as they move from a potential energy barrier to products. State-of-the art vector and parallel processing computer architecture will be used to enhance the direct dynamics simulations. In this research project molecular modeling and simulation is used to study the motion of individual molecules and of molecular collisions leading to chemical reaction and energy transfer. Molecular simulation methodologies have become sufficiently sophisticated that they are often predictive, giving near-quantitative results. The research to be performed during the upcoming three year period includes applications of well-developed simulation methods to interpret new experimental results and test theoretical models, as well as the development of more direct simulation approaches for studying large molecular systems. The specific simulations to be performed are of: (1) reactions leading to diamond film growth; (2) mass-spectroscopy experiments of cluster fragmentation and fragmentation of ions when they collide with the surfaces. The latter has been proposed as a procedure for sequencing peptides; (3) reactions between ions and molecules; and (4) the fragmentation of highly energized molecules.